High Resolution TEM Study of Phase Transitions and Solid State Reactions in Modulated Structures

This program continues a research effort on high resolution transmission electron microscopy studies of phase transitions and solid state reactions in modulated structures. The emphasis in the new research will be on modulated structures which appear in the high temperature superconductors. The initial effort will be on the bismuth-strontium-calcium cuprate system. The study of the modulation modes and their relation to the critical temperature will be investigated. The control of the modulation mode to find new, improved materials is of interest. The study of the microscopic features of intergrowth of modulated structures and their relation to the superconducting properties will be emphasized.